Participation of Qualified Oceanographers from Developing Countries in International Scientific Meetings

9808985
Gross
This award provides funds to the Scientific Committee on Oceanic Research (SCOR) for a long-standing program of travel assistance to qualified and active oceanographic researchers from developing countries and nations with economies in transition. SCOR travel grants are awarded to enable such individuals to attend international meetings relevant to their scientific interests and to those of SCOR and the Division of Ocean Sciences of NSF. This ongoing project has become the cornerstone of SCOR's efforts to provide assistance to marine scientists in the third world and, more recently in Russia and Eastern Europe. All recipients of funds are informed that this assistance is made possible through a grant to SCOR from the US National Science Foundation. Project objectives include: broadening traditional participation in ocean-related international scientific meetings to include more scientists from developing countries; enhancing the exchange of detailed regional knowledge or expertise in planning for large-scale oceanographic experiments; and providing greater opportunities leading to the involvement of developing countries in international collaborative programs, such as JGOFS and GLOBEC.